Faculty Award for Women

Dr. Payne is a leading investigator in the area of siderophore- mediated iron uptake in bacteria. The problem addressed is how enteric bacteria utilize heme as a source of iron. This award is a National Science Foundation Faculty Award for Women Scientists and Engineers. The proposal fulfills the FAW objectives, which are: 1, to recognize outstanding and promising women scientists and engineers in academic careers of research and teaching and 2, to facilitate the further development of their careers.